Assured Software Composition for Real-time Systems

NSF 0341304
Assured Software Composition for Real-Time Systems
Vitek

This projects investigates fundamental issues involved in the
construction of scalable, reconfigurable, real-time embedded systems.
The work focuses on application of object-oriented technologies and,
in particular, the Real-time Specification for Java (RTSJ) to the
domain of mission critical embedded software systems. The specific
outcomes of this projects are: (A) Configurable Real-Time Java
Framework: The technical foundation for the project is a new framework
for real-time Java execution environments called Ovm. The Ovm
framework allows domain experts to configure a real-time virtual
machines to the operational requirements of a particular mission,
e.g. tune footprint or predictability characteristics. (B) Automatic
Configuration of Component Families: Automatic techniques for adapting
part of an embedded system in response to changes in its environment,
such as, hotswapping bug fixes are studied. Behavior adaption is based
on a combination of plugging and reflective object techniques. (C)
Integrated Testing and Verification: Software composition requires
strong assurance about the behavior of individual components and the
system as a whole. This project includes development of compliance
tests for real-time embedded systems wrt functional and non-functional
aspects. These results will be validated by synthetic benchmarks and
representative applications built on the NASA Mission Data System
(MDS) testbed running Real-time Java.